IRES: Call Me Glober-Under-represented Undergraduate Bioengineering Research in Singapore

Non-Technical Abstract: As future bioengineers, the participating students will appreciate the impact of international differences in regulation, culture and ethics, and engineering approaches. The purpose of the program is to teach, train, and mentor under-represented undergraduates (minorities and women-U.S. citizens or permanent residents) each year via cross-cultural immersion at Nanyang Technological University (NTU)in Singapore. The project themes entail research related to transformative biomedical applications. This IRES project will enhance 1) student learning abilities; 2) intercultural competencies; and 3) retention and enrollment in graduate studies. The program will provide international educational opportunities to enable participants to effectively compete as global leaders in this field.

Technical Abstract: Efforts to engage U.S. students in biomedical research abroad, particularly those from under-represented groups are essential for training the next generation of STEM professionals who can work in a global environment. In this three year program, under-represented students will be participating in a biomedical-focused international research experience (IRES) at Nanyang Technological University (NTU) in Singapore. The participants, all from the EPSCoR state of South Carolina, include Historically Black Colleges and Universities (HBCUs). Program objectives will be assessed by measuring how well the IRES program trains participants in 1) research skills (e.g. learning to conduct research, data analysis, formulating research hypotheses); 2) intercultural competencies; and 3) retention and enrollment in graduate studies.
The IRES research project is in biomedical sciences with specific importance in developing new technologies. During this three year project (2015-17), qualified undergraduates from different institutions will spend eight summer weeks at NTU in Singapore performing research with dedicated mentors.The intellectual merit of the program involves: 1) Creating specific biomedical science projects; 2) Creating well-developed research and outreach activities; and 3) Developing a specific and appropriate plan to measure the PI's goals to train all GMG fellows in the skills of STEM research and learning while living abroad. Broader impacts involve: 1) Providing summer research experiences for under-represented undergraduates designed to encourage pursuit of graduate study; 2) Providing US students from an EPSCoR state the opportunity to conduct research in a Southeast Asian research laboratory and learn intercultural competencies; 3) Leveraging the previous experience and skills of students trained in other programs; 4) Providing designed professional and cultural development activities for the students; 5) Training participants to disseminate their research to biomedical science peers; and 6) Enhancing existing collaborations between Clemson and NTU.